Critical Measurements of the Large (Ms = 7.1) Santa Cruz Mountains, California Earthquakes under Urgent Conditions

This grant will fund urgently needed support through the SGER program to cover the critical costs for field measurements of the large (Ms=7.1) Santa Cruz Mountains earthquake, for data reduction, data analysis and for rapid distribution of this information to the scientific community. Prior to the main shock on October 17, 1989, the principal investigator, on the basis of two large foreshocks, installed four digital strong ground motion recorders in the area of main shock which recorded invaluable strong motion data. This grant will support that work and enable follow-on analysis of the aftershock series. This work has direct application to the National Earthquake Hazard Reduction Program.